4th International IASPEI Symposium on Effects of Surface Geology on Seismic Motion UC Santa Barbara, 23 - 26 August, 2011

The 4th International IASPEI/IAEE Symposium on the Effects of Surface Geology on Seismic
Motion (ESG) will be held at the University of California, Santa Barbara from 23 – 26 August
2011. Approximately 250 scientists and engineers from around the world are expected to attend
this symposium to present the latest results on how local site conditions affect ground motion
induced by earthquakes. Since the 3rd Symposium in Grenoble in 2006, there have been
significant earthquakes in Japan, China, Italy, Haiti, Chile, Mexico, and New Zealand that have
provided a wealth of data. In particular, the 2010 Darfield event in New Zealand and the 2011
Tohoku event in Japan induced widespread liquefaction. Analysis of the data from these events
and dissemination of the results to larger communities will aid in the mitigation of damaging
effects from earthquakes in the future.
This conference will bring together an international community of earthquake scientists and
engineers. It will promote an interdisciplinary exchange of ideas and provide everyone with a
perspective on the current state-of-art research into the fundamental problems associated with
quantifying the effects of the local site geology.
The papers presented at the conference will be published on a CD-ROM and distributed to all
registered participants. The papers will also be available through the conference website to the
general public.